New Methods for the Engineering Design and Analysis of the Dynamics of Asynchronous Automatic Assembly System

This proposal is to develop a new method of analysis for non-synchronous automatic assembly systems. This method utilizes recent advances in queuing theory and is based on a series of approximations developed in the theory of queues. This advanced technique is very promising for the application proposed in this research, however substantial modification will be required to produce a practical engineering method. This proposal will develop these modifications and,in particular, will develop the necessary methods to analyze circular assembly systems. Extensive experiments using real industry data will be conducted to verify the new approach. Methods will be system, to generate thermal property data for use in the casting solidification simulation software, to investigate high efficiency computational techniques, and to investigate heat flux control during solidification by means of heat pipe devices. Analytical and experimental methods will be employed. The results of the proposed research should provide useful methodology and software for an important U.S. industry, i.e. the foundry industry, and should contribute to improved efficiency and quality in castings manufacturing. The work complements joint research to be conducted at another university (University of Michigan).